NSF Young Investigator: Toolkit Development for the Design of Floating-Point Arithmetic Hardware and Software

The goal of this research is the development of a toolkit based on formal methods for aiding designers in developing floating point arithmetic hardware and software. A novel feature of this research is the introduction of theorem proving techniques directly into the design process. The toolkit includes a formalized version of the IEEE floating point specification and theorems that reason about that specification.